NSF Young Investigator

9358516 Atman Engineering education for the beginning student should 1)engage the student's interest so he/she will stay in engineering and 2)provide the student with a foundation for learning how to function successfully in a world of rapid technological change. As a way to meet these challenges, many engineering schools are changing their curricula to include realistic engineering problems for students to solve in their freshman year. These can be semester long engineering design projects or shorter problems that are open-ended in nature. By giving freshman engineers open-ended problems to solve, we will provide them with a simulated real world experience, but at this print we have no research base from which to provide recommendations for the engineering professors who must guide students through the ambiguity of the engineering design process. What can we expect a freshman engineer to extract about the engineering process while solving open-ended problems? Does the student apply what is learned in one problem to the next problem encountered? The objective of this work is to document the problem-solving approach novice engineers take when presented with ambiguous, pen- ended design problems. This will be accomplished b a series of think-aloud studies that examine various aspects of engineering students' strategies for solving open-ended problems. These data will answer questions such as 1)do "good" students and "poor" students differ in their approach to studying case study material and solving open ended problems? 2)do approaches to engineering design problems of these two student groups differ from experienced engineers?, and 3)do engineering students generate self- explanations as they study case-study material about design problems, and does this help them improve their performance in design tasks? The answers to these questions will contribute to a research base from which recommendations will be developed for teaching strategies to facilitat e learning for engineering students. ***